Special Project: Curriculum Workshop on the Introduction of High Performance Computing into Undergraduate Computing Programs

9526518 Coleman This award provides support for a workshop on "Introduction of High Performance Computing in Undergraduate Computing Programs" to be held at the 1995 ADMI meeting. The annual ADMI meeting brings together faculty from a large number of minority institutions. The goal of this workshop is to provided participants with a comprehensive overview of computational science curricula and hands-on experience with the use of the Internet and HPCC shared resources. The workshop program includes a series of lectures by experts in the field, discussion of possible curricula implementations, and demonstrations and hands-on experiences in the use of the Internet, Netscape, and the World Wide Web. ***